CAREER: Revealing the Initial Chemical Reactions in Blended Cements to Strengthen Domestic Cement Supply Chains

This Faculty Early Career Development Program (CAREER) award will support fundamental research to secure the supply chain resilience and domestic manufacturing capabilities of the United States construction sector. Concrete serves as the primary material backbone of modern infrastructure, yet domestic production of traditional cement is insufficient to meet national demands. This deficit forces an over-reliance on imports, leaving national infrastructure projects vulnerable to international market volatility and supply disruptions. While integrating local alternative materials into blended cements offers a pathway to expand domestic production and reshape domestic cement supply chains, widespread industrial implementation remains blocked. The technical barrier lies in the complex, poorly understood chemical reactions that occur within the first hours of mixing, which largely dictate the final strength and structural reliability of the material. This project resolves this critical engineering bottleneck by tracking these initial chemical transformations in real time. By providing the foundational science required to safely maximize the utilization of domestic resources, this research directly advances national economic competitiveness and infrastructure resilience. Furthermore, the project implements a comprehensive educational program, including an annual doctoral training school and public instructional videos, to prepare a highly skilled engineering workforce capable of advancing domestic cement and concrete manufacturing.

The technical objective of this project is to establish a time-resolved, mechanistic understanding of reaction kinetics and early-age microstructural evolution in highly substituted blended cementitious systems. Investigating these systems has historically been constrained by the poorly crystalline nature of alternative raw materials, which limits the effectiveness of conventional characterization techniques during the critical initial twenty-four hours of hydration, a pivotal period where a large proportion of the hydration reactions takes place. To overcome this limitation, this research implements an innovative characterization framework combining non-radioactive, isotopically enriched materials and cement phases with advanced solid-state nuclear magnetic resonance spectroscopy. This approach will resolve the coordination environments and spatial distribution of calcium, silicon, and aluminum ions during early-age hydrated phase precipitation. Complementary techniques, including isothermal calorimetry, in-situ X-ray diffraction, and synchrotron-based nano-tomography, will monitor simultaneous phase precipitation and porosity evolution. The research isolates the specific impacts of alumina substitutions on the surface charge and adsorption behaviors of calcium silicate hydrate gels. Ultimately, these experimental insights will reveal how initial chemical interactions govern the macroscopic workability and early-age strength development of blended cements. The project delivers foundational thermodynamic and kinetic datasets that enable the predictive design of reliable, domestically sourced cement-based construction materials.